Variational Methods for Material Damage: Fracture, Fatigue, and Debonding

The investigator uses variational methods to study material
damage, with an emphasis on properties of damaged regions and
their time evolution. Examples of damage include brittle cracks,
cracking due to fatigue, and debonding of thin films. Some
discrete-time models for damage evolution exist in the engineering
community, but these are generally ad hoc and not known to
correspond to limiting continuous-time models. The investigator
studies the existence of the limiting models, basic properties of
the damage regions, and the justification for extending numerical
methods for static problems to methods for the quasi-static,
continuous-time problems.
Damage to materials is of great technological importance not
only because it results in material failure, but also because it
plays an important role in building certain nanostructures, for
example by selectively debonding thin films. The project seeks to
greatly improve our understanding of these materials by improving
the mathematical models and studying basic properties of their
solutions, as well as by developing and justifying numerical
methods. Mathematics Ph.D. students are included in the project,
and are trained in the mathematical modeling and analysis of
important interdisciplinary problems.